39th Annual Meeting: Wind River Conference on Genetic Exchange, June 7-11, 1995, Estes Park, CO

9501897 Yasbin The 39th annual meeting of the Wind River Conference on Procaryotic Genetics, is being held at the Wind River Ranch, Estes, Park, Colorado, June 7-11, 1995. This conference is primarily concerned with the biology of genetic exchange systems and the genetics of a variety of procaryotic and eukaryotic systems: it is the major annually occurring meeting devoted to this subject area. One significant feature of these meetings is their accessibility to graduate students and post-doctoral students, whose travel funds frequently are limited. Funds are being provided for travel and support scholarships to facilitate the attendance of graduate students and post-doctoral students working in various areas that comprise prokaryotic genetics. %%% This is the major meeting held annually in the United States where the genetics of a wide variety of bacteria are discussed. ***